Industry/University Cooperative Research Activity: ParticleContamination in the Clean Room

Topics of concern to the semiconductor manufacturing industry, all of which are severe, long-term barriers to the future of Very Large Systems Integration (VLSI) production, will be addressed. The three areas to be investigated in this research project are: (1) detection of submicron particulates in process gases; (2) investigation of phenomena associated with the emission of vapors or particulates from surfaces in clean room manufacturing areas; and (3) investigation of physical processes that might be used to remove Angstrom sized particles from gases used in semiconductor manufacturing.